A Young Scholars Project in Biology and Mathematics for High School Students - MSTP

9553499 Fleischman Villanova University will initiate a six-week, summer residential, Young Scholars project with MSTP in biology and mathematics for 8 teachers and 40 students entering grades 11 and 12. The summer component combines course work with extensive laboratory research experience. The subject matter in the two disciplines is presented in an innovative, unified manner that emphasizes interdisciplinary connections, scientific inference, quantitative thinking, and techniques of visualization. Other activities include field trips and panel discussions. Academic year follow-up activities include the implementation of individual research projects designed by the students during the summer.